Tsuris in the Soul: Contentious Inter-Ethnic Politics and the Black-Jewish Question

This project investigates cycles of inter-ethnic conflict. The argument is that anti-government protests by minorities generate a cycle of contention involving collective action processes -- counter-mobilization, bandwagons, external patronage, and intra-community competition -- that affect the likelihood of inter-ethnic conflict and cooperation. The PIs apply this theory of inter-ethnic relations to the case of Blacks and Jews in the United States. While conventional wisdom indicates that Black-Jewish relations have deteriorated in recent years, systematic description and explanation is virtually absent. This work examines Black-Jewish interactions in New York City from 1900-1997. It codes data from a variety of news sources and uses ARIMA intervention estimation and hazard models to test the model. The research contributes to our understanding of two established fields -- social movements and Black protest.